Research Experiences at University of New Mexico for Undergraduates in Chemistry

The University of New Mexico is being supported to establish a Research Experiences for Undergraduates (REU) SITE. The purpose of this SITE is to provide meaningful hands-on research opportunities in contemporary chemistry for outstanding undergraduate students under the supervision of experienced research chemists. The Program will support 9 undergraduate students for the summer of 1987, of which almost half will come from other institutions. The research activities will include the following: o Development of the Differential Polarization Microscope o Organic Synthesis of Sterols related to Cholesterol o Interactions of Polymers with singlet molecular oxygen o Preparation of new ceramic materials